Mossbauer Studies of Site-Substituted Ferredoxin

With this Research Planning Grant for Women, the Inorganic, Bioinorganic, and Organometallic Chemistry Program supports preliminary research on the effect of protein environment on the catalytic and redox activity of ferredoxins by Kristene K. Surerus of the Chemistry Department, University of Wisconsin - Milwaukee. The long-term goals of the project are to investigate the role of hydrogen bonding in regulating oxidation-reduction potential of ferredoxins, and to explore the relationship of ligand environment to catalytic behavior. Mossbauer spectroscopy will be used to observe changes in ferredoxin behavior. The research planning period will enable Surerus to test the feasibility of the experimental design. The findings have implications for development of solid state catalysts or electronic materials.